The Collected Papers of Albert Einstein

In 1987, under the directorship of Dr. John Stachel, Princeton University Press produced volume one of The Collected Papers of Albert Einstein," including the Einstein's writings and correspondence from 1879 to 1902. This volume was especially important because of the discovery and publication of the correspondence between the young Einstein and his fellow student and first wife, Mileva Maric. Volume two, begun under Dr. Stachel, was published in 1990 under the editorship of Dr. Martin Klein. This volume included Einstein's publications from 1901 to 1909, among them a number of works that were absolutely crucial in the development of 20th century science. Both volumes were accompanied by an English translation produced under the direction of Dr. Peter Havas. With this three year grant, Dr. Martin Klein, with Drs. Jurgen Renn and Robert Schulmann, will complete the preparation of volumes 3 through 7 of the Collected Papers. Volumes 3, 4, 6 & 7 will present Einstein's writings from 1910 to 1922. These papers include Einstein's work on his General Theory of Relativity. Volume 5 will present Einstein's correspondence from 1902 to 1914. This grant will also support the preparation of the accompanying English translation of these volumes. Dr. Klein is assuming responsibility for the translation as well as the edition. At the end of the three year period, it is the hope of the Princeton University Press to have raised an endowment to complete the publication of 29 volumes of Einstein papers. This project will continue well into the second decade of the next century. In the meantime, researchers will be actively working on these papers. NSF is pursuing additional ways of expediting this research.